Computer Animation of Human Characters

This project is concerned with the application of intelligent system technology for the rapid generation of animated films portraying human figures as they move through a complex environment. This project is divided into three areas: the major thrust is to develop sophisticated expert-system based animation tools that automate much of the work of what traditional animators call "inbetweening", that is, filling in missing action between the points that the animation director specifies. The second objectives is to be able to render more realistic looking human forms by modelling actual human muscle structures. The third objectives is to study and develop new parallel algorithms and language structures for real-time interactive control of the animation process.